Symposium on Polymeric and Organic Materials: Solid State Properties and Smart Materials, at American Chemical Society Meeting, Anaheim, California, April 2-7, 1995

9505906 Reynolds This award provides partial support for an international symposium on "smart" materials and the solid state of polymers. It will be held at the national meeting of the American Chemical Society in Anaheim, California, from 2-7 April 1997. ***